VLSI Workshop for Minority Institutions To Be Held July 23-28, 1989

This proposal, submitted to the National Science Foundation Directorate for Computer Information and Science Engineering, involves the development and execution of a workshop for very large scale integrated (VLSI)circuit design. The focus of the workshop is directed towards minority academic institutions-namely HBCU's -obtaining the skills necessary to teach and conduct research in VLSI CAD areas at the advanced undergraduate and graduate levels. North Carolina A&T State University will serve as the HUB school, where they can assist other HBCU institutions towards implementing a course and research activities. The targeted outreach schools are: Southern University, Tuskegee University, Tennessee State University, Howard University, Hampton University and Prairie View University. Selected faculty members from the departments of electrical engineering and/or computer science will attend a one week workshop where the fundamentals of Mead and Conway VLSI design methodology will be presented. The workshop will include: i) an overview of VLSI CAD methodology, ii) principles of MOS transistor technology, ii) an introduction to VLSI CAD workstations, and iv) laboratory exercises illustrating VLSI CAD techniques.